WeBWorK in the Mathematics Curriculum

Mathematical Sciences (21)
The proposed project focuses on improving student mathematical achievement at the University of Virginia by expanding a pilot implementation of the WeBWorK online homework system. We will develop comprehensive libraries of WeBWorK problems to be used in Math 111 (Probability/Discrete Mathematics), Math 121-122 (Applied Calculus I and II), and Math 131-132 (Calculus I and II), courses with a total annual enrollment of approximately 2300 students. These libraries will allow us to easily expand WeBWorK to all sections of the above courses. The problem libraries will be indexed for use at the University of Virginia and other institutions.

To provide increased support for student learning, we will also develop an extensive collection of online sample problems with solutions, available in both HTML and as video clips. The project will include two summer workshops for regional postsecondary and secondary teachers interested in learning about the WeBWorK system, and will provide assistance to those interested in implementing the system. An ongoing evaluation and dissemination program is fully integrated into the project.